CAREER: Developing Semiconducting Ferroelectric Materials to Realize Polarization Enabled Charge Separation and Transport

NON-TECHNICAL SUMMARY

Developing more efficient routes for charge separation and transport will have an immediate impact on energy harvesting, sensing, and computing. Current technologies rely on a junction between dissimilar semiconducting materials to control charge separation and transport, but it would be more efficient if that same action could be achieved within a single asymmetric material. This work is determining how ferroelectrics -a unique class of asymmetric materials with reorientable polarization (internal electric fields)- can be used to enable charge separation and transport. Changing the composition of the ferroelectric material is an approach being used to modulate the magnitude of polarization and the material’s ability to absorb light to create charge. Systematically and independently varying each material property allows for the determination of the impact of these properties on charge separation and transport. This work is providing insight into how to design ferroelectric materials and devices to achieve the highest possible efficiencies and sensitivities for optoelectronics, medical sensors, and computation. The broader impacts of this work are translating these findings into current ferroelectric devices including memory, logic, holography, quantum computing, medical ultrasounds, sonar transducers, dielectrics, sensors, actuators, and energy harvesters. The research is also connecting directly into outreach plans to integrate virtual reality modules created from the research into technical college curriculum as a workforce development platform. Thus, this work addresses the NSF’s stated goals and U.S. needs for improving public health, economic well-being, scientific workforce development, and national security.

TECHNICAL SUMMARY

Using ferroelectric polarization to separate photogenerated charge carriers for optical sensing and energy harvesting was once predicted to be extremely inefficient, but recent increases in power conversion efficiencies are prompting a reevaluation of the driving mechanisms enabling polarization induced charge separation (PICS). Further investigations are needed as no single theory yet captures the PICS phenomena entirely. This work proposes that the primary mechanisms driving PICS can be differentiated by independently tuning the magnitude of the polarization, the ferroelectric domain structure, and the band structure via chemical substitution within a semiconducting ferroelectric. This work is systematically tuning the polarization through A-site substitution, the band structure through B-site substitution, and the domain structure through poling in semiconducting hexagonal ScFeO3 ferroelectrics. This work is establishing a missing class of semiconducting ferroelectric materials and offering unique insights into the mechanisms of PICS while laying the foundation for future ferroelectric transistors, optoelectronics, and quantum computing. Advancing semiconducting ferroelectrics will not only improve current semiconducting devices, they will also enable entirely new, innovative technologies for efficient charge separation (critical in optoelectronics), modulate surface charge (critical in catalysts), direct charge carrier transport (critical in transistors), and enhance magnetoelectric coupling (critical in biosensing). The research is also connecting directly into the outreach plans to integrate virtual reality modules created from the research into technical college curriculum as a workforce development platform. Thus, this work addresses the NSF’s stated goals and U.S. needs for improving public health, economic well-being, scientific workforce development, and national security.